First Symposium on Polymers in the Marine Environment; Waikoloa, HI; December 9-13, 2000.

This First Symposium on Polymers in the Marine Environment will focus on the demanding combination of properties required for applications of polymers in the marine environment. The symposium is the first to combine the technical, environmental, and biological elements that contribute to the challenge of formulating polymers for the marine environment.
%%%
The symposium will focus on the latest research on (a) Nontoxic fouling release polymers, (b) Membranes for shipboard water purification, (c) Advanced resins for marine composites, (d) Corrosion control with redox polymers, and (e) Novel concepts involving the use of polymers in marine applications